NSF Young Investigator

We propose to further our initial investigations of carrier dynamics in solid C60 begun at Rice, using time-resolved optical methods to study both carrier relaxation and transport mechanisms in this material. Also, we plan to investigate semiconductor interface electronic structure and its effect on bulk carrier dynamics near the surface.